XXXVth Rencontres de Moriond Conference; Les Arcs, Savoie, France; March 11-25, 2000

The proposal is for supporting US scientists to attend the XXV Rencontres de Moriond Conference on:
1. Electroweak interactions and unified theories
2. QCD and high-energy hadron interactions

The conference will be a weeklong.